Technical Services 2000 RV Weatherbird II

0071231
Hansell
This award to Bermuda Biological Station for Research (BBSR) provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Weatherbird II, a research vessel operated by BBSR as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct oceanographic studies in the Northwest Atlantic Ocean, and particularly the Sargasso Sea region, in CY2000 and beyond.
***